Advances in Materials for Proton Exchange Membrane Fuel Cell Systems, February 18-21, 2007, Asilomar, CA

This proposal requests NSF support in the amount of $300 each for 10 graduate students, or a total of $3,000. If awarded by the DMR, this grant will support Ph.D. students from Virginia Tech, Rensselaer Polytechnic Institute, Case Western Reserve University, the University of Connecticut, the University of Southern Mississippi, Ohio State University, and the Colorado School of Mines to attend the conference and present posters on their recent work on the subject of Polymeric Materials for Polymer Electrolyte Membrane (PEM) Fuel Cells on February 18-21, 2007, at the Asilomar Conference Center near Pacific Grove, California.